Reflections on the Foundation of Mathematics Symposium, Stanford California

9813766
Sieg
This award will provide support for speakers and others, in particular,
graduate students, who attended the symposium entitled ``Reflections on the
Foundations of Mathematics'' at Stanford University from December 11-13, 1998.
The turn of the millenium is an especially appropriate time to reflect on the
proof theoretically inspired foundational investigations of this century that
have roots in the work of 19th century mathematicians, e.g., Dedekind, Cantor,
Frege, and Kronecker. These investigations have been merging over the past
decades with developments in set theory and recursion theory; however, their
special emphasis on broad philosophical issues has remained prominent. The
symposium was timed to coincide with the 70th birthday of one of the guiding
spirits of foundational research over the past four decades, Solomon Feferman,
which served further to focus attention on where we have been in this effort
and on where we may be going. Participation by graduate students was of
obvious importance to the latter. The efforts of the organizers to prepare
a detailed agenda and widely representative program were rewarded by a
strikingly successful symposium, and the proceedings volume that will appear
in due course promises to be a valuable and influential resource for the
community for years to come.
***